Conference on Research in Income and Wealth to be held in Washington D.C., June 1995: Geography and Ownership as Bases for Economic Accounting

9409757 Baldwin This conference is organized by the National Bureau of Economic Research and it focuses on measurement needs, accounting procedures, and research issues of current interest to international economic analysts and policy makers. The aim of the organizers of the conference is to commision research papers dealing with basic methodological questions in international economics, and data collection and economic measurement issues identified along regional geography and nationality of ownership. This conference is important because it provides new and improved international data that would be used to shed more light on a number of international economic issues, such as, regional economic agreements, industrial policies foreign-investor policies, and regional development policies.